Engineering Research Equipment Grant: Phase Doppler Particle Analyzer

This equipment award is for a Phase/Doppler Particle Analyzer (P/DPA) which will be used in research programs directed towards (1) developing a better understanding of the atomization process in electrostatic paint sprayers which incorporate conventional fan spray nozzles (2) developing a better understanding of the physics of spray formation and subsequent droplet dynamics in coal-water slurry atomizers which incorporate airblast nozzles and (3) to investigate a promising new method of twin fluid atomization, effervescent pressure atomization. The instruments capability for simultaneous point measurement of drop size and velocity will accentuate each program. The relative importance of aerodynamic and electrostatic forces in determining drop-size distribution and drop trajectories will be determined experimentally. These results will then be utilized in the development of models to predict atomization quality and trajectory as a function of paint properties, atomizer geometry, and operating conditions.